Improving overlap-finding techniques for whole genome shotgun data

Yorke
A genome (the DNA in a cell) can be represented by a
sequence of letters called "bases." A large genome can consist
of billions of bases. Chemical techniques allow scientists to
read only a few hundred bases at a time. The whole genome shotgun
(WGS) assembly technique creates a draft of the sequence of a
whole genome by selecting such short fragments at random from the
genome, determining the sequence of the fragments, and then
computationally re-assembling millions of these fragments. Two
fragments are said to "overlap" if it is plausible that they come
from the same part of the genome, based on a comparison of their
sequences. The goal of this project is to focus efforts on
producing an extremely robust set of overlaps, using a
combination of sophisticated error-correction techniques, as well
as "localizing" fragments to validate overlaps by ensuring that
both fragments come from the same vicinity of the genome.
Several issues complicate the determination of which pairs of
fragments overlap. First, most genomes contain many "repeat
regions," i.e., two or more almost identical copies of long
stretches of sequence. Thus, two fragments that do not actually
overlap may look like they do. Second, the random sampling
technique results in many base errors --- bases can be mis-read
or missed entirely. These errors, combined with the fact that
repeat regions usually differ slightly, make it very difficult to
distinguish a spurious overlap from a true overlap in which one
or both fragments contain read errors. Thus, if extreme care is
not taken, it is easy to use a spurious overlap and thereby
mistakenly connect distant parts of the genome. Preliminary
results in collaboration with Celera Genomics, the Baylor College
of Medicine, and The Institute for Genomic Research (TIGR) have
demonstrated that the investigator's current techniques can
already produce more sequence at higher quality. The goal is
improve these techniques and make them widely available.
The determination and interpretation of genetic information
is one of the great challenges of the twenty-first century. The
genome, i.e., all the DNA in a cell, is the molecular basis of
diversity and the cornerstone of genetic information. Draft
genomes have been obtained for human, mouse, and some insects,
fish, plants, and bacteria. This is a start, but a full
understanding of biological processes cannot be had by studying
the genomes of only a handful of species. The federal government
is spending about 100 million dollars per year generating
sequence data. Millions of small pieces of a genome are sampled
from the genome. The second stage is called "assembly," when
these pieces are re-assembled on a computer like a giant jigsaw
puzzle. The puzzle is complicated by two facts: first, many of
the puzzle pieces have small errors that make them mis-fit
against pieces that they SHOULD fit with; and second, many pieces
that should NOT go together actually fit together quite well.
This makes it extremely difficult to correctly assemble a genome.
There are two ways to decrease the ambiguities: first, one could
generate more pieces. However, each new piece costs about $2,
and one would need to generate millions of new pieces to have a
significant effect on assembly quality. The investigators use a
second route. They attempt to squeeze as much information out of
the existing pieces as possible. The latter route is
substantially cheaper, and there is still much room for
improvement here over existing techniques. The investigators are
using sophisticated mathematics to help discern with extreme
precision those pairs of pieces that do, and those that do not,
fit together. Preliminary results of the investigators -- in
collaboration with several large sequencing centers -- have
demonstrated that using their techniques to "pre-process" the
pieces can produce more of the genome, with fewer errors. This
project aims at extending these ideas further and making them
freely accessible to all investigators. The impact on the federal
genome (biotechnology) projects is potentially great.